Mathematical Sciences: Analysis and Computations Related to the Riemann Hypothesis

This is a renewal award on a project in analysis and computations related to the Riemann Hypothesis. The main purpose of the research is to continue attacking the Riemann Hypothesis and related problems by a combination of numerical calculations and analysis. The expectation is that the by-product of the investigation can be almost as valuable as the prospect of settling the Riemann Hypothesis itself.